CAREER: A Safety-Aware Learning Framework for Identifying and Mitigating Risks in Human-LLM Interactions in Healthcare

Large language models are increasingly used in healthcare applications such as virtual assistants and decision support tools, offering new opportunities to improve access to care and patient outcomes. However, these systems can introduce new kinds of risks that arise not from the model alone, but from how people interact with it. For example, patients may rely too heavily on automated advice, receive responses shaped by harmful preconceptions or be unintentionally influenced toward unsafe decisions. These risks are especially concerning in sensitive settings such as mental health and addiction recovery, where errors can have serious consequences. This project addresses these challenges by developing new methods to make interactions between people and artificial intelligence systems safer and more trustworthy. The work aims to improve the reliability of healthcare technologies, support safer patient experiences, and contribute to the broader goal of responsible artificial intelligence. Educational activities include developing interdisciplinary coursework and engaging students from diverse backgrounds in research at the intersection of artificial intelligence and health.

This project develops a unified, safety-aware learning framework for identifying and mitigating risks in human-large language model interactions in healthcare. The research investigates three integrated thrusts. First, it develops predictive models to detect fundamental and emerging interaction risks, such as overreliance, stereotyping, manipulation, and privacy violations, using supervised and contrastive learning techniques with interpretable outputs. Second, it introduces robust learning methods to mitigate these risks by incorporating user intent, clinical context, and interaction dynamics, including adversarial training and personalized reinforcement learning algorithms. Third, it designs an adaptive, closed-loop method that jointly optimizes risk identification and mitigation through self-supervised and continual learning, enabling generalization to evolving risks over time. The framework is evaluated using realistic digital simulation environments for addiction recovery and mental health support. The expected outcomes include new machine learning methodologies for AI safety, insights into safe deployment of AI in healthcare, and generalizable techniques for trustworthy human-AI interaction in high-stakes domains.